2002 Gordon Research Conference on Biogenic Volatile Organic Compounds; Oxford, United Kingdom; September 1-6, 2002

This award supports the Gordon Research Conference on Biogenic Volatile Organic Compounds (VOCs) scheduled to take place at Queens College, Oxford, UK, September 1-6, 2002. The meeting has been organized to bring together plant physiologists, ecophysiologists, and atmospheric chemists to discuss plant emissions of hydrocarbons. A significant fraction of the VOCs emitted to the atmosphere in the U.S. are derived from plants. The most abundant of these, isoprene, can play an important role in the formation of ozone and other air pollutants and is therefore of general concern to the public. The study of oxidation processes in the atmosphere and ozone formation is of central relevance to the atmospheric chemistry. This meeting will bring together an interdisciplinary team of scientists to assess research issues of common interest to both atmospheric scientists and plant physiologists.